Support for Second International Symposium on the Biogeochemistry of Model Estuaries

Estuarine systems strongly influence biogeochemical cycles within ocean margins. Research on the importance of estuaries in ocean margin biogeochemical cycles has been an important part of the studies funded or planned by federal agencies such as NOAA, NSF, and DOE in recent years. The International Symposium on the Biogeochemistry of Model Estuaries was organized as an international effort to convene the best scientists working on estuarine chemical processes. The first symposium was convened in Yugoslavia in May 1989, and a second conference will be held in Jekyll Island, Georgia 14-20 April 1991. This proposal is a request for modest funds to help finance the symposium, particularly junior scientists, and other domestic scientists outside the field. Topic to be considered at the second symposium include: - Effects of global change on estuarine processes - Role of estuaries in global change - Estuarine topological schemes - Estuaries as sinks for materials from oceanic sources - Importance of episodic events on estuarine processes - Particle-water interactions in estuaries